Community Climate System Model (CCSM) Scientific Outreach Program

This is to support the Committee for the Community Climate System Model (CCSM) outreach project. This proposal will support one or two scientists per workshop per year who are actively engaged in the CCSM to visit university departments to give seminars and/or otherwise interact with faculty and students for the purpose of presenting scientific results from the CCSM and discuss opportunities to work on and with the CCSM.